Collaborative Research: CT-ISG: Efficient Cryptography Based on Lattices

Only two number-theoretic assumptions --- hardness of factoring and of

computing discrete logarithms --- underlie essentially all public-key

cryptosystems in widespread use today. For lower-level primitives

such as hash functions, random number generators, and stream ciphers,

the situation is even worse: existing provably-secure constructions

are too inefficient to compete with practical alternatives such as

SHA-1 or AES, and so the primitives in use today have no rigorous

justification for their security.

This research will investigate new classes of computational

assumptions based on lattices. Based on these assumptions, the

investigators will seek to design cryptographic primitives that are

both provably secure and comparably efficient to existing, deployed

schemes. The research will explore the use of lattices to construct

basic cryptographic primitives, including hash functions, pseudorandom

generators, shared-key authentication protocols, public-key encryption

schemes (including those secure against chosen-ciphertext attacks),

and digital signatures. The educational component of this work will

focus on educating graduate students as well as developing

introductory-level surveys of lattice-based cryptography.